Mathematical Sciences: Theory and Application of Domain Decomposition Methods for Incompressible Fluid Flow

The development of accurate and efficient numerical methods for the incompressible Navier-Stokes equations is important for the understanding of many complex physical phenomena. The research proposed here focuses on developing such methods, implementing them on a parallel computer, and applying them to a class of difficult problems. The methods to be developed use domain decomposition and are suitable for use on parallel processors. The methods will be implemented on a Thinking Machines, Inc., CM-5 parallel processor. To demonstrate the usefulness of the methods, they will be applied to a set of nontrivial test problems. The test problems will be computations of vortex shedding by either fixed or oscillating cylinders in uniform flow.